Collaborative Research: Changes in the Strength of the Florida Current since the LGM

Funds are provided for the PIs to collect two bathymetric transects of sediment cores on the southern Florida margin and the western margin of the Great Bahama Bank. The PIs will also reconstruct the history of the flow for the Florida Current through the Straits since the last glacial maximum on millennial to centennial time scales through the Holocene and last deglaciation based on these and existing cores. The work will further our understanding of circulation changes in the Florida Current system and therefore the heat transport to high northern latitudes.